Active Control of Structure Instrumented with Optical Fiber Sensors Under Earthquake Loading

This project attempts to study the following key problems in active control: 1) the standard optimal control technique requires the knowledge of the entire time history of the structural response to compute the necessary control force by solving the Riccati equation. In the mean time, instantaneous optimal control algorithm was developed for on-line control. It lacks the analytical argument to prove its convergence and controllability in the global sense, and 2) the validity of the assumption that the control force is proportional to the displacement, velocity and acceleration of the structure subjected to earthquake loading. This assumption is acceptable if and only if the excitation force to the structure is ignored in the determination of the control force from minimizing the objective function. To answer the above questions, two types of control schemes are studied in this project: the pole placement controller and the neural network controller. These two schemes will be investigated both analytically and experimentally. In addition, optical fiber sensors will be applied to the scaled model structures. Through comparison of test signals between the optical fiber sensors and classical sensors, suggestions for improvements of the sensor system for use in civil engineering structures will be made possible. Overall, this project will be undertaken through the following three major research tasks: (1) control methodology; (2) scaled structural model experimental test on shake table; and (3) improvement of sensor systems.